REU Site in Mathematics at Louisiana State University

The Research Experiences for Undergraduates in Mathematics (REU) at the Louisiana State University in Baton Rouge will engage a group of twelve nationally selected, highly motivated undergraduates in a research
experience in current mathematical research in the area of Zeta Functions, Multi-Zeta Values & Link Invariants. Three faculty mentors will give an introduction to these common focus areas stating problems
and connections. Each then collaborates with a group of four students working on related projects in his area of research expertise.

REU students are housed on the LSU campus, living in clustered suites of rooms; week-end social activities and daily afternoon teas foster the interaction of all participants and promote group cohesion. After
introductory lectures, the students group themselves into cohorts of four working on closely-related projects with each faculty mentor. Each student gives a final presentation, and submits a written paper in a form suitable for publication.